Constrained Epitaxial Growth of SI-Based Heterostructures

9306696 Kvam An interdisciplinary effort will be followed to examine the growth fundamentals and structure of CVD growth of SeGe alloys on Si(100), over insulating layers and in constrained configurations. Studies will emphasize seeded epitaxial overgrowth of both two- and three-dimensionally constrained growth configurations. The near-term target of this research is the fundamental understanding and reliable controlled production of heterostructure layers within a fully confined cavity by epitaxial lateral overgrowth. Highly strained and strain- relieved materials will be examined for their microstructural integrity. The effects of limited lateral dimensions may be tailored to remove defects from device regions. Surface infrared spectroscopy, in combination with kinetic modeling, will be used to analyze the behavior of the growth, carrier and etching gas species to provide quantitative descriptions of growth behavior in both full wafer and seeded epitaxial growth. Oxidation due to atmospheric exposure and to thermal treatment will also be examined. %%% Novel growth configurations(selective and confined) are proposed to employ SiGe layers in Si for high-speed transistors and optoelectronic devices. Surface reactions which control this growth, and the quality of the materials produced, will be assessed. Structural integrity of strained layers and practical oxidation processes(both protective and harmful) will be examined. Modeling will be done for use in fundamental process understanding and industrial scale-up. This research will enable reliable uniformity even in highly integrated three dimensional structures and lead to improving the general performance of advanced devices and integrated circuits used in computing, information processing, and telecommunications. ***